Fine Structure of Fault Zones from Modeling High-frequency Body-wave Waveforms of Aftershocks

Earthquakes are the result of rapid movement of crustal
blocks on faults, which are marked by a narrow fault zone
(FZ) with a width of several hundred meters. Most
earthquake rupture models, including the asperity and
stick-slip paradigms, suggest that FZ structure (geometrical
and material properties) controls earthquake rupture
initiation, propagation, and termination. However,
determining FZ structure at seismogenic depths where
earthquakes nucleate and the majority of slip occurs has
been shown to be extremely difficult. In this project,
seismologists at Saint Louis University use high-frequency
body-wave waveforms from aftershocks near the FZ to
determine fine-scale. Waveform characteristics
enables them to design a new strategy in which the FZ width
and velocities are determined separately, thus eliminating
the trade-off between the two. Furthermore, by using FZ
reflected waves, they can pinpoint the locations in the FZ
where they have obtained FZ width and velocity parameters.
This gives them a unprecedented high depth resolution of FZ
structure. In addition, they are able to relocate
aftershocks with an accuracy of a few tens of meters
relative to the FZ boundaries. They plan to apply the
method to data sets of various fault zones in California,
including the Landers, Hector Mine, San Jacinto, and San
Andreas Fault at Parkfield to determine FZ parameters
(strike, width, velocity and density drops, and Q) and
possible temporary variations.
Broader Impacts: The information obtained is crucial
to developing models of the earthquake source. Experience
gained in this study will help design future FZ seismic
experiments and the methodologies developed can be easily
applied to other regions and data sets, such as those from
the on-going USArray.